CISE Research Infrastructure: Spatial Intelligence for Computer-Enhanced Interaction with Physical Environments

EIA-0080124
Nelson, Randal C.
University of Rochester

CISE Research Infrastructure: Spatial Intelligence for Computer-Enhanced Interaction with Physical Environments

Intelligent computer systems have considerable potential to augment human abilities, not only in accessing abstracted information, but also in dealing with physical environments (both real and virtual). A canonical example of such a system, though certainly not the only one, is a robot with which one can converse. To mediate between people and a physical environment, an intelligent system must perceive spatial structure of various sorts and competently execute physical actions. At the same time, it must communicate with human users to provide information, accept instruction, or assist interactively with complex tasks.

The term "spatial intelligence" can be used to capture the overarching ability to perceive, act in, and communicate about a physical environment. Implementing spatial intelligence depends on integrating a variety of enabling technologies in AI, distributed systems, and human interfaces. Some of the most critical of these technologies, particularly in machine perception and natural language communication are currently crossing a threshold that promises to make useful, end-to-end, spatially intelligent systems viable for the first time.

The overall goal of the project is to enable creation of flexible spatial intelligence with which human users can interact naturally to carry out a variety of collaborative tasks. The project will create and equip a laboratory resource specifically designed to advance the state of the art in the various enabling technologies, and facilitate and demonstrate their integration into end-to-end systems.